EAGER: Collaborative Research: Heterogeneous Cores, Memory-Hierarchy and Communication Architectures for Future CMPs

Computing has enabled immense innovations in many fields and social
life due to continued performance, power, and cost improvements
enabled by technology scaling. Unfortunately, two key trends threaten
performance and cost improvement of computers going into the
future. First, technology scaling is at jeopardy, leading to major
challenges in power consumption, reliability, and performance. Second,
power and energy consumption has become a key constraint, yet existing
systems are mostly designed in a one-size-fits-all way agnostic to the
needs of different applications. To overcome both problems, this
research investigates novel uses of heterogeneous technologies in
three key components of a computing system: cores, interconnect, and
memory. The approach taken is an application-driven approach that aims
to seamlessly integrate heterogeneity in the three components. Major
expected contributions of the research include: (1) an initial study
of first-principles based and application-driven design of cores, (2)
new mechanisms for enabling phase-change memory based heterogeneous
main memory, (3) exploration of tradeoffs in the design of
3-dimensional optical interconnects, (4) initial exploration of the
interaction of heterogeneous components in cores, interconnect, and
memory.

The proposed research has the potential to transform the design and
architecture of future multi-core systems, which are already a part of
the entire IT sector and our daily lives. It can enable overcoming key
challenges that impediment higher-performance and lower-power
lower-cost computing, which has traditionally enabled new applications
and discoveries. Enabling fundamentally efficient heterogeneous
multi-core systems can largely reduce energy and technology-scaling
costs of computing, and improve dependability and performance. Direct
transfer of many ideas to industry are expected through extensive
collaborations with platform and chip design industries.